An International Perspective on the Role of Algebra in Elementary School Mathematics

The Algebra Problem: US Mathematics Education has an increasingly difficult in Algebra
Problems to solve. The standard indicators of student achievements international comparisons, NAEP
and other national measures, as well as state test results all point in the direction of lower achievement
as grade levels increase. Well-known TIMSS analyses of US curricula point in the direction of repetition
of elementary skill building and superficiality of topic coverage as important contributors to the problem,
combined with tell-and-drill pedagogy that puts students in overly passive position as learners. And, of
course, high failure rates in first year algebra courses contribute to alienation on the part of students and
low morale among teachers. Responses involve a wide variety, but largely ineffective tactics involving
middle and early high school curricula: pre-algebra courses of various kinds, screening and diagnostic
tests, district and state mandates that all students take Algebra I, lengthened courses, modifying the
definition of if algebra, creating different versions of if algebra, end-of-course exams, among others.
Each adjustment produces small improvements, although, since the tactics tend to be ad hoc and
implemented independently, improvements do not accumulate or multiply. NCTM recommendations for
integrating the development of algebraic reasoning across K-12 are implemented only in a few of the
standards-based curricula, and these mainly at the middle school level.
Research Towards Solutions: Several research teams studying the development of algebraic
reasoning in the early (K-5) grades, who are represented in this proposal, have formed an informal
research collaborative, renewing a prior collaboration funded by the US DoE OERI in the early/mid
1990. These researchers share broad hypotheses regarding the large positive potential of building
algebraic reasoning in the context of elementary mathematics, the need to exploit untapped student
learning capacities among younger students, the powerful role of generalization and formalization in
deepening students experience and understanding of elementary mathematics especially arithmetic
and the potential for using changes in the curricular relationships between algebra and elementary
mathematics as a catalyst and vehicle for faculty development of elementary teachers. These researchers
are engaged in several complementary lines of work focusing on different aspects of the challenges
student learning, classroom practice, curriculum development, professional development, capacity
building, and so on.
Proposed Combination of Travel, Conferences and Monograph: The collaborating researchers
have all been invited to present papers to an important conference to be held December 8-15, 2001, in
Melbourne, Australia on The Future of the Teaching and Learning of Algebra which is being sponsored
by the International Commission on Mathematics Instruction. Professor Kaput has been designated to
Co-Chair the Early Algebra Group at the conference. We request funds to exploit, in 3 ways, this unique
opportunity to bring an intensely international perspective to bear upon our active research program: (1)
To support travel to the international conference. (2) To hold two meetings in the US, one prior to and
one following the Melbourne conference, involving a slightly larger group of mathematics educators
working in this area. (3) To write and publish a monograph expressing our findings in order to inform
policy makers, curriculum developers and assessment builders of the latest developments in this rapidly
changing field. Hence we also request a small amount of funding for editorial work to pull together and
publicize the monograph, which in turn will point to additional web resources illustrating relevant
research.